Approximate Dynamic Programming Using Random Sampling

Abstract

Proposal Number: ECCS-0824077

Proposal Title: Approximate Dynamic Programming Using Random Sampling

PI Name: Atkeson, Christopher G.

PI Institution: Carnegie-Mellon University

The objective of this research is to develop approximate dynamic
programming methods for the control of high performance nonlinear
systems. The approach is to use spatially local models of key
functions such as a function that represents future costs over an
entire task or mission (the value function), and a function that tells
the system what to do in each situation (the policy). Humanoid robots
will be used to evaluate the nonlinear control design techniques and
compare them with other approximate dynamic programming approaches.

Intellectual Merit

Key contributions of this work will be: 1) Developing an integrated
approach for dynamic planning based on approximate dynamic programming
for high performance systems. 2) Showing how to combine many fast
greedy local planners to produce globally optimal solutions. 3)
Showing how to represent knowledge along explicit trajectories, which
increases the feasible sparseness of this approximate dynamic
programming method. 4) Showing how to create an adaptive
representation using random sampling of states. 5) Showing how to use
local models, and compare them to global parametric function
approximators. 6) Showing how to use fast trajectory optimization to
speed up approximate dynamic programming.

Broader impacts

A specific impact of this work will be to enable high performance
(near optimal) control in areas like robotics, transportation, and
energy. A more general societal payoff is industrial processes,
machines, and robots that are easier to program, perform better and
waste fewer resources.